Mathematical Sciences: Differential Equations and Their Applications

8822519 Payne The principal investigator will conduct research in applied mathematics in the general area of partial differential equations. The specific areas are ill-posed problems, isoperimetric inequalities and maximum principles, St. Venant and Phragmen-Lindelof problems, stability studies, and overdetermined systems. Among other problems, the principle investigator will study the question of convergence of the steady flow of a viscous flow in a pipe to fully developed pipe flow under relatively arbitrary entry conditions. He also plans to derive St. Venant type results in classical elasticity that are meaningful in the neighborhood of the Poisson's ratio equal to 1/2. A third investigation will deal with stability studies in a convection problem for a thermomicropolar fluid, and still another will attempt to derive an explicit rate of convergence of the flow of a micropolar fluid to Navier-Stokes flow as the interaction parameter tends to zero. He will continue his attempts to stabilize ill-posed problems against errors in geometry (a necessary prerequisite to the numerical treatment of such problems), and will apply a new approach to the study of overdetermined systems to an assortment of problems for which the maximum principle is inapplicable.